CAREER: Sparse-sampling inference for functional proteomics, metabolomics and ionomics

Northeastern University is awarded a grant by the NSF Faculty Early Career
Development (CAREER) Program to develop statistical and computational
tools for functional proteomics, metabolomics and ionomics. The
proposed research will address three inter-related aims: (1) Accurate
identifications and quantifications of proteins, metabolites and ions
from high-throughput experiments, which generate sparse data in form
of mass and nuclear magnetic resonance spectra; (2) Joint
interpretation and integration of these sparse heterogeneous datasets;
and (3) Optimal design of global and targeted follow-up experiments.
The proposed program is innovative in that it closely accounts for the
biological and technological characteristics of proteomics,
metabolomics and ionomics. As the result, it will increase the
sensitivity, accuracy, and scope of interpretation of the
investigations. The utility of the developed methods of statistical
inference, and of the associated open-source software, will be
demonstrated on functional screens of S. cerevisiae, which integrate
heterogeneous transcriptomic, proteomic, metabolomic and ionomic
datasets.

The proposed program will contribute to bridging the communication gap
between biologists, chemists and statisticians. The project will promote the
computational thinking, and the appropriate use of statistical
methodology, by making available case studies that are relevant to the
user community, by offering interdisciplinary tutorials and short
courses at scientific meetings and interdisciplinary courses at
Purdue, and by providing mentoring for graduate and undergraduate students across
departments.